Postdoctoral Research Fellowship in Biological Informatics for FY-1999

This action funds an NSF Research Postdoctoral Research Fellowship in Biological Informatics for 1999.

The research and training plan is in the area of population biology and is entitled "Integration of genetic and environmental data into a comparative database: elucidating the role of across-Andes dispersal in the diversification of lowland organisms." This research bridges genetic and geographic (GIS) technologies to examine the role of the Andes in biological diversification. Relevant environmental parameters are characterized across a known across-Andes dispersal corridor. These data, coupled with natural history information of the dispersing organisms, are being used to construct models of genetic structure. The model's predictions are then tested using empirical genetic data.